Quanitative Studies of Dynamical & Chemical Physical Processes in Magma - Collaborative Research

This research program represents a continuation of the collaborative effort between F.J. Spera and D. A. Yuen in studying the dynamical evolution and physical properties of crustal magma bodies by means of state-of-the-art numerical techniques on supercomputers. It will focus on two themes: (1) To continue the study of double-diffusive convection, which represents a unique feature of magma chamber fluid dynamics. (2) To initiate a new computational program in the determination of nonequilibrium transport properties of silicate melts from molecular dynamics. The goal is to obtain some basic understanding of the effects of pressure and shear-rate on the viscosity and diffusion coefficients of magmatic substances. These research areas will contribute to our understanding of the physics of melts and the dynamics of magma transport.